AMC-SS: Stochastic Waves and Wave-Mean Interactions

Buhler
DMS-0604519

The investigator undertakes a theoretical and numerical
study of strong stochastic effects in mathematical fluid
dynamics, specifically in the area of wave-mean interaction
theory. Here "strong" refers to effects that substantially change
the overall dynamics of the fluid system when compared to the
standard deterministic setting. In general, wave-mean
interaction theory describes the nonlinear interactions between
small-scale waves and the large-scale mean flows on which the
waves are propagating. There exists a substantial body of
classical wave-mean interaction that is based on deterministic
waves, but very little has been done on the stochastic version of
the problem. The present work combines a number of projects
aimed at extending the classical theory in this direction.
Examples include the use of stochastic theory for wave dynamics
and nonlinear wave breaking, for two-dimensional wave-vortex
turbulence, and for the derivation of effective mean-flow
equations for stratified flows subject to high-frequency
oscillatory forcing.

Interactions between waves and mean currents include the
driving of long-shore currents and vortical motions such as rip
currents by breaking waves on a beach (important for civil
engineering and naval operations), the creation of clear-air
turbulence by breaking waves in the stratosphere (important for
aviation and the environment), and the driving of the global air
circulation by breaking waves in the mesosphere, above 60km
altitude or so (important for climate evolution). These
processes are far too small in spatial scale to be resolvable in
numerical models for atmosphere-ocean dynamics, which means that
in these models their impact must be put in by hand based on
theory and observations. This is called the "parametrization"
problem for unresolvable processes, and even on the biggest
supercomputers it will remain a bottleneck problem for decades to
come. Now, in the classical "deterministic" theory in this area,
the prevailing conditions are assumed to be simple and perfectly
known. However, in reality, the prevailing conditions are often
complex and poorly known. Stochastic theory addresses this by
allowing for uncertain, or random, components of the situation.
This project brings modern stochastic theory to bear on the kind
of wave-mean interaction problems that are relevant to
atmosphere-ocean science. There are two principal project aims:
first, finding new effects that are missed by the deterministic
theory; and second, laying the foundation for a more realistic
representation of wave-mean interactions in numerical models for
use in climate prediction, aviation, and near-shore civil
engineering.